Research on Concurrency and Distributed Systems

Investigations will continue into mental tools for developing concurrent and distributed programs. Some of that work is concerned with the semantics and verification of concurrent and distributed programs; other work, with identifying abstractions for fault-tolerant, real-time, distributed systems. A new approach that has been developed for verifying temporal properties of programs will be extended. Previously, this approach could not adequately handle properties specified by non-deterministic Buchi automata. This restriction will be relaxed. Extension from a posteriori verification to a program development methodology will also be investigated. An attempt will be made to narrow the gap between the theory and practice of fault-tolerant distributed system design by using and identifying helpful abstractions. Using the state machine approach, a prototype control program for a real-time process control and application will be constructed. Optimization of fundamental protocols for agreement and clock synchronization will be attempted based on exploiting properties of the environment and application being controlled. New, asynchronous, clock synchronization protocols will be investigated. Finally, techniques for programming using values obtained from approximately synchronized clocks will be studied.